Regulation of Intestinal Function in a Mammalian Hibernator

9306813 Carey The overall goal of this 3-year project is to increase understanding of regulatory signals underlying changes in intestinal function during the seasonal cycle of a mammalian hibernator, the 13-lined ground squirrel. Previous studies in the applicant's laboratory have documented structural and functional changes in small intestinal tissues of ground squirrels that are closely related to the seasonal cycles of food intake and metabolic activity in these animals. During the proposed project period, we plan to extend our earlier findings and determine how digestive enzyme and nutrient transport function are regulated during the different activity phases of ground squirrels. This objective will be met by focusing on four areas: (1) characterization of sugar and amino acid transport at the level of the brush border membrane; (2) immunocytochemical localization of Na+-glucose transporter and sucrase-isomaltase proteins in intestinal tissues; (3) determination of intestinal epithelial cell age and migration rates in hibernating and active squirrels; (4) determination of messenger RNA levels coding for NA+-glucose transporter and sucrase-isomaltase proteins during specific activity states of the squirrels. This project will directly address the increasing evidence (in non-hibernating species) that the presence of luminal substrate is required for maximal expression of nutrient transporters on brush border membranes, by studying a mammal that has been shaped by adaptive evolution to forego feeding for long periods of time. Together, these studies should provide a comprehensive picture that characterizes the regulation of nutrient digestive and transport function on multiple levels. Information gained from this study will increase our understanding of the ability of intestinal transport systems to adapt to dramatic changes in food resources in a seasonal environment. ***